High Efficiency Power Delivery and Front-End Module Design for Implantable Bio-Sensors

The I/UCRC for Advanced Technologies for Minimally Invasive Diagnosis and Treatment at the University of Minnesota and the Connection One I/UCRC at Arizona State will be collaborating on a project that focuses on fully integrated high efficiency power supply regulators and low noise analog front end circuits for battery-less implantable passive telemetry based sensors. The researchers will collaborate on diverse areas of microelectronics and bioengineering including electromagnetics, MEMS based inductors and probes, analog, mixed-signal IC design and power electronics.

This collaborative project will provide a much broader university and industry experience for the researchers, students and company members. The research results will help companies design efficient, reliable power supplies that do not require batteries for implantable devices, thereby reducing the number of surgeries.